STORM-FEST and GALE Subsynoptic Scale Cyclone and Frontal Case Studies

Bosart proposes to continue his case study analyses of subsynoptic scale midlatitude cyclones and fronts. Specifically, he proposes to complete a final set of case studies using date from the GALE (1986) field experiment, to begin collaborative research on the numerical prediction of coastal mesoscale weather systems, and to participate in the STORM-FEST (1992) field experiment and the post-experiment analysis phase. This experiment will produce data sets gathered by next-generation observational systems (e.g. Profilers and Doppler radars). Evaluation and systems testing of their capability to enhance operational detection and forecasting of intense mesoscale weather events are among the primary experimental objectives. In addition, there have been defined scientific objectives for a set of frontal and mesoscale studies of cool-season weather systems typical of the central US. Bosart's third line of proposed research is focussed on this last set of objectives. He has contributed to the scientific planning of the field experiment, by conducting background climatological analyses and identifying specific research opportunities that should result. The proposed work is expected to be a major contribution to STORM-FEST's scientific objectives, based on Bosart's role in similar field experiments in the past. It will augment the return from the significant investment in scientific resources represented by the experiment.